Minority Postdoctoral Research Fellowships and Supporting Activities Program Travel Award

This action funds a travel award to a minority graduate student to visit the laboratories of potential sponsoring scientists for postdoctoral research and training on endocrine function in elasmobranchs.